Solar Neutrino Observations / Day-Night Effect

As part of its nuclear reactions in its core, the sun produces neutrinos. Neutrinos are electrically neutral particles that interact only very rarely with matter. Once produced, they pass through the sun and fly off into space. The Principal Investigator (PI) of this proposal intends to measure the solar neutrino flux on earth, making use of new fast counting equipment and of chlorine, which becomes excited when absorbing neutrinos and thereby allows the measurement of the rate of solar neutrino absorption. This is a classic neutrino experiment that the PI has been conducting for about two decades in the Homestake Gold Mine. The ultimate goal of this experiment is to understand the current differences between the measured and theoretically predicted solar neutrino flux.